Establishment of a Fluorescence Spectroscopy/Cytometry Laboratory

9317576 Jenski This proposal's objective is to obtain funds to establish a fluorescence laboratory equipped with a research grade fluorescence spectrophotometer. The fluorescence laboratory will be stationed in the Department of Biology (in the School of Science) at Indiana University - Purdue University at Indianapolis (IUPUI), serve four major and three minor users, and contain a Perkin-Elmer LS-50B Luminescence Spectrometer. The Department now has only an old, very inadequate and heavily used fluorescence spectrophotometer. As a result, research in existing labs has been severely compromised and the development of new faculty will be hampered. Unlike the old spectrophotometer, the LS-50B Luminescence Spectrometer will be able to maintain viable cells or heavy cell components in suspension, analyze cell monolayers, accept substance during a run, monitor at dual wavelengths in millisecond intervals, and rapidly read multiple samples. The biologic applications for the fluorescence spectrophotomer include monitoring the expression of membrane proteins on cell monolayers, kinetics of protein redistribution on membrane surfaces, membrane permeability and fusion, membrane structure and dynamics, calcium binding proteins, and intracellular calcium and pH levels. These experimental measurements are essential for the continued development of the research programs of the principal investigators. iH5 ~CRD1D46TMP jH5 ~CAL3171TMP =_5 ~CRD0B5BTMP @_5 9317576 Jenski This proposal's objective is to obtain funds to establish a fluorescence laboratory equipped with a research gr ! ! ! F ( Times New Roman Symbol & Arial 8 8 K " h 3 % 3 % 3 % = abstract Deseree King, BIR Deseree King, BIR